QSB: Experimental Driven Computational Analysis of E. coli Global Redox Sensing/Regulatory Networks and Cellular Responses

The overall objective of this project is to develop an integrated quantitative framework, consistent with existing mechanistic knowledge and well-designed in-house experiments, for the study and eventual enhancement of the Escherichia coli oxygen and redox sensing/regulatory system. Experimental data will be obtained from the literature and the investigators' laboratories. The specific goals are: (1) to construct an experimentally verifiable model of the genetic network of the oxygen and redox sensing/regulatory system; (2) to develop a scheme for distilling maps of metabolic pathways from the network models achieved in (1); (3) to generate metabolic patterns based on the predicted metabolic pathway maps using standard metabolic flux analysis techniques; (4) to construct mutant strains to be used in bioreactor experiments to support the modeling effort; and (5) to perform bioreactor experiments to generate quantitative data to be used to refine and validate the network and pathway models.